NRT-IGE: Data Science for the Built Environment

NRT-IGE: Data Science for the Built Environment

The availability of voluminous, high resolution data in both the spatial and temporal dimensions, coupled with increasingly fast, distributed computational resources offers enormous opportunities for tackling complex engineering and science challenges in urban settings. These data can also play an important role in interdisciplinary problem solving and have increasingly high value to multiple communities of scientists and engineers. However, research in the optimal instruction mechanisms to develop data science skills is still emerging. This is particularly true for engineering graduate students, who are a highly selected, technologically sophisticated population with the ability to quickly master material. This National Science Foundation Research Traineeship (NRT) award in the Innovations in Graduate Education (IGE) Track to the University of California-Davis will pilot, test, and compare modes of data science instruction. The testbed project will provide critical new information to inform the development of new learning platforms designed to cultivate robust computational, statistical, and data reasoning skills in engineering graduate students.

The project will implement a hybrid short-course approach that 1) bridges existing code camps and semester long classes, and 2) is coupled with a formal user group experience. A robust evaluation will be conducted to identify the individual effects of code camps, short courses, and users groups, as well as the effect of participating in combinations of experiences. In addition, learning gains, self-efficacy to engage in interdisciplinary studies that require data science principles, and career trajectories (including decisions to take additional coursework in data science and decisions to pursue interdisciplinary research and employment involving data science) will be examined. The project will generate new knowledge that addresses a particularly important gap in knowledge in terms of whether intense short-term learning experiences result in longer-term retention of skill development and computational reasoning. Findings on effectiveness of different modes of data science instruction in engineering will be broadly applicable to all data-enabled science and engineering fields.

The NSF Research Traineeship (NRT) Program is designed to encourage the development and implementation of bold, new, potentially transformative, and scalable models for STEM graduate education training. The Innovations in Graduate Education Track is dedicated solely to piloting, testing, and evaluating novel, innovative, and potentially transformative approaches to graduate education.